Search for Higgs from LEP to SSC

9312416 Zhou This award is for experimental studies of electroweak symmetry breaking. These efforts are concentrated on the search for the neutral Higgs boson of the minimal standard model. They include data analysis with the L3 detector at CERN and simulations of the Higgs boson search at LEP 200 and the SSC. Continuing searches for the Higgs boson using the LEP L3 detector and further studies of Higgs detection methods with the GEM experiment at the SSC will be carried out. ***